Experimental Study of Collective Motion, Charge Distribution and Bound-Free Electron Correlations in Unusual States of Ar+: Correlation Studies ...

9419505 Jaecks Three projects are supported. The first involves the transfer of excitation form He+ to AR+. The second is the study of the photoionization of Ar+ using synchrotron radiation with emphasis on the correlations of the product ion with the outgoing electron. The third experiment is a continuation of prior research involving the breakup of H3+ into three coulomb interacting fragments. All of the projects are designed to probe the correlations involving particles of negative and positive charge in collision environments. ***